SHF: Small: Modular Reflection

As the internet and mobile devices become increasingly important
parts of our society, the need for web and mobile applications has
grown. Recent advances in software frameworks have drastically
reduced the amount of code needed to develop such applications. From a
programming languages perspective, the key enabling technology is
reflection, that is, the ability of a program to introspect and to
modify itself. Unfortunately, reflection comes at a heavy cost:
it can delay the detection of bugs, it reduces the effectiveness of
bug-finding tools, and it reduces the speed of applications. The
goal of this research project is to preserve the benefits of
reflection while eliminating the disadvantages, thereby improving the
reliability and speed of web and mobile applications.

The key observation that underlies this research is that uses of
reflection in software frameworks are governed by implicit
conventions. If those conventions could be made explicit, then
automated software tools will be able to effectively reason about
reflective code. This research will create a rich specification
language for making those conventions explicit, it will investigate
algorithms for inferring specifications from existing
application code, and it will develop tools for checking the
conformance of web-mobile applications and frameworks with respect to
specifications.